International Workshop Supersolids 2011

The International Workshop "Supersolidity 2011" (to be held at the Graduate Center of City University of New York, June 7-10, 2011) is devoted to one of the most exciting discoveries in solid state physics in the last decade -- possible long-sought supersolid state of matter in free space.
The discovery has spawned an explosion of both experimental and theoretical studies clearly indicating that the quantum solid He4 is richer in new phenomena than ever imagined.
This workshop will provide an exciting timely opportunity for the US and international community of scientists -- young and established -- to learn and exchange ideas on the latest developments around the world in order to unravel the enigma of supersolidity in solid He4 and other systems.
Direct cross-communications create synergy in understanding the phenomena in a very efficient way and play a crucial role in resolving the main theoretical and experimental challenges in the field of supersolidity.
As an essential part of the education and training in natural sciences, the support from the National Science Foundation will allow active participation of young US scientists in this exciting process.